Scholarships for Non-Traditional PSU Students in Computer Science and Engineering

This program provides non-traditional students majoring in computer science or engineering with financial aid in the form of scholarships. A coordinated system of faculty advising, mentoring, counseling and tutoring especially tailored for the more mature non-traditional student is available to aid the student during re-entry to the demands of academic studies. Faculty mentors are helping the students connect with regional industry via a program of topical talks, professional society meetings, workshops and internships. These activities are enhancing the students' employment opportunities.